SBIR Phase I: Handheld Devices for Practical Simultaneous Translation

The broader impact of this Small Business Innovation Research (SBIR) Phase I project on a handheld simultaneous translator advances the state-of-the-art technologies in natural language processing and machine learning acceleration. Beyond technical contributions, the novel translator will likely have a significant impact on a wide range of domains, such as military personnel deployed in foreign countries, businesspeople participating in multilingual meetings, medical service providers, law enforcement, customer support services, diplomats and political representatives, local governmental entities providing services to citizens in the preferred language, and international tourists. As such, the project will have broader impacts in increasing economic competitiveness, advancing health and welfare, and improving military capabilities of the United State. Furthermore, the project helps to enhance equity in education and STEM literacy by enabling better access to educational resources to people of diverse backgrounds, especially immigrants, women, and underrepresented minorities in some countries/regions, who were previously disadvantaged due to limited prior educational access or limited access to foreign language courses.

This Small Business Innovation Research (SBIR) Phase I project focuses on the research and development of innovative algorithmic optimizations and a purpose-built translation device to enable fast, accurate and low-power inference for simultaneous translation. The overall approach is to exploit the unspoken but implied connections among language elements at various levels to guide the learning model. Specific techniques are investigated at the phoneme-level, work-level, and sentence-level. Collectively, these innovations aim to reduce the computation complexity of simultaneous translation by orders of magnitude while increasing translation accuracy. A systematic and comprehensive methodology is also being established that allows fast implementation of the inference hardware via high-level synthesis and reports detailed statistics on translation accuracy, latency, power, and area to facilitate a thorough evaluation of the research.